Conference Support: Athabascan Languages Conference 2002

0136114
Holton

Alaska and Northwestern Canada are home to more than half of the Athabascan languages, and in these areas Athabascan communities have shown increasing interest in language revitalization. At the same time, the Athabascan languages present unique challenges to linguists seeking to develop lexical databases. The 2002 Athabascan Languages Conference, with an accompanying workshop on lexicography, will be held in Fairbanks, Alaska, in an effort to unite linguists, Native speakers, educators, and language learners in a rich information exchange. The sessions will be focused on linguistic research, language revitalization, and language policy. Stipends will be available for students and Native speakers from the Alaskan interior and Northwestern Canada.